Alternative Approaches to Evaluating STEM Education Partnerships: A Review of Evaluation Methods and Application of an Interorganizational Model

The goals of this evaluative research project are: 1) to review how partnership performance is evaluated in the STEM educational community and also in a variety of other settings drawn from other policy contexts, industry, and not-for-profit; and 2) to develop and test a model exploring how degrees of embeddness among partners influence the process by which STEM educational outcomes are pursued and achieved. A panel of STEM evaluation and education experts will participate in an online Delphi panel whose goal is to develop an evaluative model for linking embedded partnership relations to educational outcomes. This model will be tested with up to four systemic initiatives for retrospective insights into partnership activities and with at least two ongoing Math and Science Partnership projects.